JiTTDL : The Just-in-Time Teaching Digital Library

JiTTDL is a user-contributor digital library serving the Just-in Time Teaching community. Just-in-Time Teaching (JiTT) is a pedagogical strategy designed to blend active learning with web technology in a traditional classroom setting (more information is available at www.jitt.org). The library holdings consist of JiTT resources, such as assignments, assignment construction methods, analysis rubrics, classroom strategies development, assessment strategies and results, etc.) These are sharable materials, developed and contributed by faculty from eighty plus institutions from all science disciplines.
The project is:
a. achieving collection of sharable JiTT materials and relating these to research literature;
b. creating a JiTT-specific assessment toolkit;
c. developing metadata to facilitate search and retrieval;
d. deploying a "new adopter start up service" so that implementing JiTT is not technically challenging and adopters can concentrate on classroom strategies. This includes providing new faculty with space on the JiTTDL central server during their first JiTT year.
e. developing a mechanism to facilitate the discovery and use of the library resources;
f. providing a tutorial on JiTT use and, underlying philosophy and architecture; and,
g. offering development workshops (JiTTDL stand alone workshops and JiTTDL components at other national workshops.)